SGER: Femur Adaptation in a Smart Surgical Ward

0221215
Impelluso
The proposed work will create a 3D finite element (FE) mesh of the human femur in which each element possesses unique material properties and principal material directions. The effort will introduce modal analysis into an algorithm to model bone adaptation. The mesh will be deployed to conduct near real-time FE analyses, using a new FE code written by the PI and optimized and parallelized for a massive parallel computer whose output can be viewed in 3D virtual reality mode at a high performance visualization facility. The ultimate goal is to bring the power of high performance computing into the surgical ward, thus enabling the surgeon to visualize the stress shielding consequences of a particular fixation method.